NSF Student Travel Grant for 2019 IEEE Computer Security Foundations Symposium (CSF19)

This proposal supports student travel to attend the 2018 Computer Security Foundations Symposium (CSF) to be held in Hoboken, New Jersey in Summer 2018. CSF is an annual conference for researchers in computer security, to examine current theories of security, the formal models that provide a context for those theories, and techniques for verifying security. This travel grant will enable career development and learning opportunities for US-based and/or US citizen graduate students. Attending conferences is an important component of graduate school education for our society's future computer security researchers. Students have the opportunity to discuss leading edge research with world-class computer security researchers, and establish networks, connections, and mentoring relationships that will serve them well during their research careers.